Developing a Projects-Based Calculus Curriculum

Students are achieving increased understanding of concepts, seeing the unity of the important topics in calculus, obtaining a deeper geometric understanding, and learning problem-solving skills in a new calculus course that integrates large, open-ended problems into the curriculum.